ITR: Collaborative Research: Accurate Representations of Signals in a Coarse-Grained Environment

The aim is to provide a better mathematical framework and
alternative design methodologies for coarse quantization of signals in
a highly oversampled setting. The central themes is "sigma-delta
quantization" in analog-to-digital conversion of audio signals and its
counterpart "error-diffusion" in digital halftoning of images. In both
cases, a given target analog signal is represented by a judiciously
chosen one-bit (or few-bit) sequence which approximates the signal in a
suitable low-pass subspace. A wide range of different schemes exist for
this purpose, each corresponding to a different implementation and
approximation order. As our primary mathematical objective, we expect
to better understand the law of error decay of the existing schemes as
well as to improve on these by new designs. On the algorithmic side, we
aim to extend this analysis to settings with computational and other
implementational constraints.

The fact that digital signals and data sets can be processed, stored
and retrieved with great precision and speed places high demands of
accuracy on the conversion process from and to the analog world.
However, the devices used in the translation process (such as in the
case of analog-to-digital and digital-to-analog conversion circuits in
audio applications, and printers in image reproduction) are of
necessity analog devices, which have physical limitations that, at
first sight, conflict with those accuracy demands. To cope with this
problem, engineers have empirically developed special signal processing
techniques leading to alternative signal and number representations
that are quite different from standard decimal or binary
representations. Typical techniques take advantage of the highly
accurate performance of the analog devices in sampling very densely in
time or space to compensate for the lack of amplitude precision of
those devices. Interestingly, while these empirical schemes have proved
efficient and have been used in consumer products for a long time, the
corresponding framework of signal processing has little mathematical
support. We aim to study these schemes in more detail, with the
goals of improving the mathematical theory as well as proposing
variants that outperform those used presently, and to identify a wider
range of applications.